Transition Due to Finite Amplitude Disturbances in Channel Flow

This basic research on transition to turbulence in a two-dimensional channel is based on laboratory experiments, theory, and numerical modeling. The focus is on so-called turbulent "spots", which are localized turbulent regions embedded in surrounding laminar flow. Such spots have been extensively investigated in boundary layers, here the focus is on developed channel flow. The research will focus on non-linear effects and unsteady phenomena.